Visiting Scientist Housing at the Bodega Marine Laboratory

Project Summary Clegg, James S. 9412883 The Bodega Marine Laboratory (BML) is a research unit of the University of California (UC located on the Sonoma coast 80 miles north San Francisco. Since 1966 the Laboratory has provided unique opportunities for field research on a rich floral and fauna in close proximity to the Laboratory buildings. BML has well-equipped laboratories, and excellent seawater system, strong on-site support staff and a firm commitment from the Davis campus to continue developing the facilities and support needed by the growing number of resident and visiting researchers. The Laboratory is located on the Bodega Marine Reserve (BMR), A 362-arce protected field site with a diverse set of marine and terrestrial coastal habitats. Adjacent subtidal areas are protected and available for study within the Bodega Marine Life Refuge. The Research programs of visiting scientists and graduate students have been constrained in recent years by the lack of adequate laboratory and office space. Fortunately, a new expansion building is under construction (UC funds) that will rectify this problem. However, the lack of adequate housing for visitors is becoming an ever worsening problem as requests for use of the site for research and instruction continue to increase. The project will provide support for new housing unit that will remedy this situation, and provide a suitable balance between Laboratory facilities and the ability to accommodate the housing needs of visitors.